Symposium on Sex Attraction, Mating Behavior, and Insemination in Crustacea; San Francisco, California; December 1988

Drs. Raymond Bauer and Joel Martin have organized a symposium on the reproductive biology of the Crustacea, scheduled for the December 1988 meeting of the American Society of Zoologists (ASZ). The three major themes of the symposium are 1) the chemical, visual, and acoustic mechanisms used by crustaceans for attracting mates, 2) courting and mating behavior, and 3) the morphological variation and functional considerations of mating structures. Research on these phenomena has accelerated in the past decade, and the proposed symposium will be the first attempt to integrate them. A synthesis of these areas would illuminate the evolutionary role of mate selection, reproductive structures and mating behavior. The symposium is being cosponsored by the Invertebrate Zoology Division of the ASZ and by the Crustacean Society. The day-long symposium will include 12 invited speakers and several sessions of contributed technical presentations. The organizers plan to publish a proceedings volume of corresponding manuscripts. The proposed symposium and proceedings volume have important potential impact on a number of areas. Researchers on other arthropod groups, such as the insects, will gain insight into the larger questions of evolution of reproductive systems. Ecologists will gain valuable new data on population and reproductive biology of a diversity of crustaceans, which are commonly used environmental indicators. Most of all, the symposium will set in motion a generation of highly integrative research on evolution, reproductive biology, and mating behavior.